Block Copolymer Self-Assembly: Morphologies, Thermo-mechanical Behaviors and Kinetic Pathways

9531914 Wang Motivated by the high promise of block copolymers as materials for nanotechnology, and by their intrinsic scientific interest as model systems for self-assembling complex fluids, a systematic program of theoretical investigations will be undertaken on a number of topics involving self-assembled block copolymer nanostructures using statistical mechanical techniques. Some of these topics deal with phenomenologies that are expected to apply to a large class of amphiphilic systems, while others are unique to block copolymers. The thermo-mechanical properties of ordered nanostructures of block copolymers will be studied. By including mechanical stress or strain, a new dimension is added to the study of self-assembling complex fluids. Focus will be on various thermo-mechanical instabilities and phase transitions that occur when an ordered nanostructure is subjected to anisotropic stress or strain. Some of these instabilities and transitions are unique to ordered block copolymer nanostructures and are manifestations of length- scale dependent ordering,i.e., fluid-like behavior on the monomer scale and solid-like on the polymer length-scale. Also to be studied will be kinetic pathways of order- disorder and order-order transitions in diblock copolymers using a time-dependent Ginzburg-Landau approach. Focus will be on possible non-trivial intermediate states during the various transitions after a sudden change in the system parameters. Of special interest will be the existence of the so-called pseudo-stable states which correspond to saddle points on the free energy surfaces. These states will be explored both dynamically and in equilibrium. Finally, the phase behavior and nanostructures of ABC triblock copolymers will be studied using self-consistent field techniques. In contrast to the better studied AB diblocks, a fundamentally new feature here is that the morphological structures and phase behaviors depend not only on the fraction of ea ch block and the overall molecular weight, but also crucially on the sequence of the blocks in the chain and on the relative strengths of the interactions between the three unlike pairs of blocks. %%% This new award is to support theoretical research on nanostructure and phase transitions in block copolymers. The research particularly looks at the behavior of this important class of polymers when subjected to mechanical forces. In addition to providing insight into fundamental issues in polymer physics, the results will also be useful in applications of this class of polymers for practical use. ***